CAREER: A Runtime for Efficient and Observable Compound AI Systems

Today’s artificial intelligence (AI) systems accomplish far more than providing a single prediction given an input. Modern AI systems are typically compound, multi-step systems which invoke both learned components, such as language models, and non-learned components, such as databases, document retrieval systems, web search systems, or code execution systems. Interactions between models and external tools enable complex use cases such as synthesizing reports, producing and testing code, or answering questions based on a corpus of evidence. However, deploying compound AI systems is difficult and resource-intensive. A single query often invokes many expensive model calls and tool calls. Unfortunately, developers either deploy them naively, by duct-taping individual components together, or spend time manually optimizing their execution. Furthermore, practitioners spend effort and resources monitoring and refining compound AI components to improve end-to-end system accuracy. This project develops methods to serve and train compound AI systems efficiently. The ultimate goal is to produce new systems that enable practitioners to focus solely on application logic and refinement strategies, without worrying about details related to efficient execution and resource management.

The project will pursue scientific advancements via three thrusts: a streaming dataflow model, an efficient execution runtime, and resource management techniques to help developers observe and improve compound AI systems. The first thrust will create programming models and compiler techniques that automatically identify pipelining and parallelism opportunities in compound AI systems. Pipelining is possible because many common compound AI components, such as language models or document retrievers, can produce output and process input incrementally. However, exposing and automatically applying pipelining opportunities is challenging, because compound AI components exchange many different datatypes, at varying granularities. The second thrust will contribute techniques to flexibly manage GPU compute and memory resources across compound AI components, under dynamic load. Unlike single model inference, where each request consumes a similar amount of resources, each compound AI query produces varying load per component, based on query characteristics. The third thrust will help practitioners observe and improve the accuracy of compound AI systems. Practitioners apply techniques such as reinforcement learning (RL) to fine-tune model weights in the context of the application domain, but doing so can be prohibitively expensive, as it requires resources to execute the entire compound AI system and train all models. The project will develop novel resource management techniques that allow RL fine-tuning and similar algorithms to run at lower costs. The project overall will contribute systems abstractions that reach beyond compound AI system inference and observability. Explicitly modeling the streaming dataflow can aid future techniques for fault-tolerant AI systems. Ideally, the project will inspire future work on new systems for training where the forward pass invokes an entire compound application, instead of a single model call.

If successful, the project will result in software tools that allow practitioners to create, deploy, observe, and control compound AI systems more easily, enabling advances across the sciences. Ideally, the project will reduce the financial burden of developing and serving these resource-hungry AI applications, by allowing organizations to serve the same demand with fewer resources. In addition to producing new technology, the project will train undergraduate and graduate students to build and reason about performance, resource consumption, and accuracy tradeoffs in modern machine learning systems. Planned activities include working with students and external collaborators to develop domain-specific compound AI systems, and revising an undergraduate course focused on systems for machine learning to incorporate software from the project and content on compound AI systems.